CTEQ Summer Schools in QCD Analysis and Phenomenology

"Funding request to help fund the CTEQ Summer Schools in QCD Analysis and
Phenomenology"

Over the past decade CTEQ Summer Schools have played an important role in the world wide elementary particle and nuclear physics enterprises by promoting the knowledge of QCD and its applications to electroweak precision measurements and new physics searches. The Schools consist of eight days of lectures and discussion in which students interact closely with distinguished experts, both theoretical and experimental. The shoools aid intellectual advances by deepening the background of young scientists who contribute to the experimental and theoretical programs. The school provides young experimentalists with the essential tools for analyzing the results of their experiments.